Computational Studies in Optimization

This project concerns computational studies in the broad area of optimization, with emphasis on discrete optimization and its applications (particularly in the physical sciences), the use of parallel computation in discrete and continuous optimization, and linear programming. Specific projects to be investigated include optimal sequencing of readings on an x-ray diffractometer, validation of simulated annealing in statistical mechanics, analysis of molecular conformation, parallel algorithms for nonlinear optimization, and implementation of Karmarkar's linear programming algorithm, among several others. Extensive use will be made of the National Supercomputer facility at Cornell's Theory Center.